Remote Measurement of Arctic Basin Sea Ice Thickness

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, and sea-ice on a transect between Murmansk, USSR and Nome, Alaska. It will conduct helicopter-born sea ice thickness measurements using a unique electromagnetic induction sounding system recently developed for this purpose. The survey data will be used to assess mean sea ice thickness and salt content in relation to latitude and longitude. This information will be useful in providing ground-truth for satellite systems currently in use and in providing a bench mark for sea ice motion and thermodynamic models.